Making the Connections: Undergraduate Algebra to School Mathematics

Boston University in collaboration with the Education Development Center is developing materials for a course, Connected Algebra, to prepare mathematics teachers. The materials will make connections to the mathematics taught at the middle and secondary school levels. The course will contain detailed information about the ideas, including historical information and connections to school mathematics; mathematical investigations that facilitate understanding and application of the key ideas in mathematics and other content areas; and vignettes of lessons with middle and high school students dealing with the key ideas. This "proof of concept" project will result in sample modules on which full development of the materials could be based.